Institute for Pure and Applied Mathematics Renewal

Abstract

Award: DMS-0439872
Principal Investigator: Mark L. Green, Stanley Osher

The Institute for Pure and Applied Mathematics (IPAM) is a national
research institute that focuses on fostering interactions that bring
together researchers in the mathematical sciences with scientists and
engineers. The Institute operates without permanent faculty or
research staff. IPAM conducts semester-length programs, short
workshops, a summer research program for undergraduates, graduate
summer schools, outreach programs, and workshops to develop and
enhance the careers of researchers from groups underrepresented in the
mathematical sciences.

The IPAM web site at http://www.ipam.ucla.edu/ describes upcoming and
past programs, solicits ideas for future programs, and offers
application forms for Institute activities.